An Industry/University Cooperative Research Center for Advanced Electron Devices and Systems

This supplemental action provides funds for an evaluator at the University of Texas, Arlington's Industry/University Cooperative Research Center for Advanced Electron Devices. The evaluator will study the university-industry interaction occurring within the Center. The Program Manager recommends the University of Texas, Arlington be awarded $16,000 for the first two years of a three- year continuing award.